CPS-FR: Multi Sensor Closed Loop Sensing and Decision Support for Soil Salinity Countermeasures for Resilient Crop Production

This award supports the development of advanced cyber-physical systems and artificial intelligence methods for detecting and managing soil salinity, a growing threat to irrigated agriculture. Salts often build up unevenly and remain largely hidden within the root zone. As salt concentrations rise, crops struggle to take up water and nutrients. This stress can reduce yields, damage soil structure, and threaten the economic viability of affected fields. Current methods for measuring salinity are costly, labor intensive, or too infrequent to guide decisions during the growing season. Satellite imagery can provide broad coverage, but it observes soil and crop conditions only indirectly. It may therefore confuse salinity with drought, nutrient stress, or other causes of poor plant growth. This project will combine field sensors, airborne and satellite observations, scientific models, and advanced AI methods. Together, these tools will track changes in salinity and identify actions that are most likely to reduce its effects. The project will link monitoring to management strategies that can be tested in the field. In doing so, it seeks to improve the use of limited irrigation water and reduce avoidable crop losses. It will also help growers distinguish problems that may respond to leaching from those caused by poor drainage or other structural limits. A browser-based decision-support platform will make maps, trends, uncertainty estimates, and management scenarios available to growers, including small and resource-limited farms. The project will also provide research and training opportunities for students in computer science, civil engineering, and crop science.

The research will develop and test AI-powered cyber-physical methods. These methods will turn incomplete observations into physically credible estimates and those estimates into feasible actions. They will then use observed field responses to improve later decisions. Before crop canopy development, the project will combine data from unmanned aerial vehicles, hyperspectral and multispectral sensors, electromagnetic induction measurements, soils, terrain, and weather. These data will be used to create 10-meter baseline maps of root-zone salinity and uncertainty. Physics-guided constraints will help ensure that information fused across sensors remains consistent with how those sensors measure reflected energy. During the growing season, the crop canopy hides much of the soil surface. A student AI model will then infer salinity from satellite time series, crop responses, soil moisture, weather, and management data. A teacher model will guide the student through knowledge distillation. The teacher will be trained on simulations of water and salt movement through the soil profile. This framework advances knowledge-distillation AI by transferring not only predictions, but also physically meaningful responses to field conditions. The learning framework will enforce nonnegative salt concentrations, salt-mass consistency, and physically plausible responses to irrigation and water quality. The system will then use counterfactual simulations to compare feasible mitigation options. These options include changes in irrigation timing, applied water, and drainage assessment. Recommended actions will be treated as hypotheses. Later observations will test whether salinity changed in the expected direction and by the expected amount. The resulting methods will advance cyber-physical systems that must learn and act reliably despite sparse measurements, changing observability, and uncertain physical responses.